PNW-AGEP: Pacific Northwest Alliiance for Graduate Education and the Professoriate

The Pacific Northwest Alliance for Graduate Education and the Professoriate (PNW-AGEP) will be a strategic alliance of five doctoral-granting institutions in a geographically and culturally unique area of the United States that has an exceptionally high Native American population and is not currently served by an NSF-funded AGEP program. The long-range goals for the PNW-AGEP are to increase the number of students from traditionally under-represented minority (URM) populations who complete doctoral programs in STEM disciplines and to facilitate their successful transition into faculty positions at US colleges and universities. Washington State University in Pullman will be the lead institution, working in close collaboration with Oregon State University, University of Idaho, The University of Montana, and Montana State University. The PNW-AGEP will initially focus on development of URM student programs in support of STEM disciplines at each institution that are broadly related to the area of Energy, Agriculture, and the Environment. This planning grant proposal addresses four project goals: (1) to determine factors affecting enrollment and successful completion or attrition of students from URM groups in doctoral programs in STEM disciplines at participating institutions; (2) to identify strategies for increasing URM enrollment in STEM doctoral programs; (3) to determine existing strengths, challenges, and barriers related to the movement of URM students from STEM doctoral programs to faculty positions in U.S. colleges and universities; and (4) to develop a strategy that will maximize the collaborative benefits of existing strengths and minimize the impact of existing barriers and challenges to recruitment of URM students into doctoral programs in STEM disciplines and to the transition of those URM doctoral students into faculty positions. Each project goal will be accomplished with four general strategies: (1) collection and analysis of institutional data; (2) surveys of stakeholders in URM doctoral education (undergraduate students, graduate students, recent doctoral graduates, faculty, administrators, and tribal officials); (3) identification of successful strategies of similar AGEP programs; and (4) visits to potential partner institutions.
The intellectual merit of this proposal is derived from its evidence-based approach to program design. Scientifically valid quantitative and qualitative data collection methods will be used to assess strengths, challenges, and barriers related to URM doctoral student training at participating institutions. These methods will become the baseline for a strong formative assessment plan for the PNW-AGEP. The establishment of communication networks between stakeholders will facilitate rapid implementation of the student-centered and faculty-driven PNW-AGEP as a strategic alliance with great synergistic potential. The development of a “best practices” document for faculty, which describes successful strategies for mentoring URM doctoral students in STEM disciplines, will be an immediate outcome of this project.
The broader impacts of the PNW-AGEP will include increased numbers of URM professionals with PhDs in STEM disciplines beginning their careers as university faculty who are passionate about the possibilities inherent in their career choice. This planning project will set the stage for enhancing collaborative linkages, institutional capabilities, and knowledge base required for the successful implementation of a full AGEP project. Other broader impacts of the PNW-AGEP include: increased participation of individuals from URM groups; greater integration of research with teaching, training, and learning by students and faculty at participating institutions through introduction of best practices for mentoring doctoral students; and improved training of doctoral students in non-technical competencies, including teaching, communication, and leadership skills.